Purchase of a Mass Spectrometer

This award from the Chemistry Research Instrumentation Program will assist the Department of Chemistry at the University of Pittsburgh in the purchase of a high resolution Mass Spectrometer. Six faculty members whose research is dependent upon high resolution mass spectroscopy will greatly benefit from the acquisition of this instrument. Research projects to be carried out with this instrument include: (1) The mechanism of action of vitamin K, (2) New synthetic methods for an industrial environment, (3) Total organic synthesis of natural products, (4) Gas phase ion chemistry, (5) Molecular recognition: Novel artifical receptors for complexation and catalysis and (6) Research on Molecular recognition. %%% A high resolution mass spectrometer is an instrument used to measure the precise molecular weight of a molecular ion. This information is an important piece of data used to help determine the atomic composition and, sometimes, the molecular geometry of a molecule. It is one of the essential tools needed to learn the detailed structure of newly synthesized molecules.